RIA: High-Performance VLSI Systems Using CMOS Wave- Pipelined Transmission Gate Logic

Wave pipelining eliminates the intermediate register stages in a pipelined system by using the internal capacitance of the combinational logic for temporary storage. to obtain a high operating speed, equal path delays must be ensured between all the input and the output nodes of a given functional block. This requires symmetric rise and fall times, and delay independence on the input patterns for each component within the functional unit. This project proposes a method that uses a modified complementary Pass-transistor Logic (CPL) circuits as the basic cells to implement a high performance CMOS wave-pipelined system. Preliminary research and design results show that the family of basic cells, called Wave-pipelined Transmission-Gate Logic (WTGI), using standard CMOS technology, can be designed to have equal rise/fall times and reduced gate delay variations as compared to other approaches. The project addresses the design of a WTGL cell library for computational and signal processing applications. Further, logic synthesis and the delay tuning algorithms will be developed with an emphasis towards an application i signal processing. CAD tools that can effectively use the WRGL technique will be developed.